Beyond Discovery: El Nino and Sea Floor Spreading

9805440 Gerardi The National Academy of Sciences, in collaboration with the National Research Council's Ocean Studies Board, will produce two documents in its series Beyond Discovery: The Path from Research to Human Benefit that relate to ocean science research. Funds will be used to support the development, production, dissemination of 10,000 copies, and posting on the Internet of two topics in the Beyond Discovery series. The two topics on research related to ocean sciences are on El Ni o and sea floor spreading. Submission of this proposal and selection of the topics are timely, owing to the United Nation's having declared 1998 as Year of the Oceans (YOTO). The Beyond Discovery series is intended to identify and trace the origins of important recent scientific and technological advances and to reveal the crucial role played by basic research, the applications of which could not have been anticipated at the time the original research was conducted.